An Integrated On-Chip System for Nanoliter Molecular Separation and NMR Detection

We propose to integrate sample injection, capillary electrophoresis and NMR (Nuclear Magnetic Resonance) detection on a single silicon substrate using MEMS (MicroElectroMechanical Systems) fabrication techniques. The integration and micro scale dimensions (100 micron wide flow channel, 100 micron diameter NMR coil) of the system will provide increased separation efficiency , decreased sample volumes (nanoliters), and increased NMR detection coil sensitivity. Most importantly, the precise geometrical control and material choices afforded by using MEMS fabrication techniques will allow optimization of running time, limit of detection and NMR spectral linewidth. The design, fabrication and testing of the prototype system will demonstrate proof of concept and leading to the development of a family of integrated analytical instruments based on micro NMR detection.